Phylogenetic Analyses of the Evolution of Continuous Characters

This project is designed to develop and test phylogenetically based statistical methods that can properly be applied to comparative data. The PIs will investigate the use of generalized least-squares methods, independent contrasts, and other statistical treatments using Monte Carlo simulations; develop statistics to assess phylogenetic effects of a given trait, and investigate means for placing confidence and prediction intervals on phylogenetic hypotheses. The results will be converted into a freely available software package distributed electronically.